Graph Theory, Ramsey Theory and Combinatorial Geometry

This research project is devoted to investigating various facets of interplay
between geometry, number theory and combinatorics. The first part concerns
the theory of geometric graphs and is motivated by the following question
that remains open for several decades: "Does every planar drawing of a graph
on n vertices and 1000n edges with straight line segments contain four
pairwise crossing edges?" The PI plans to establish the existence of this
and other crossing patterns in drawings of graphs with sufficiently many
edges. Problems of finding good lower bounds on the minimal number of
crossings over all drawings of a fixed graph, as well as the existing
connections with algorithmic questions in computational geometry, will also
be studied. A related investigator's goal is to apply Szemeredi's regularity
lemma in combination with certain tools from real algebraic geometry and
topology to prove the existence of large, complete or empty, bipartite
subgraphs in the intersection graphs of segments, curves, or, in general,
semi-algebraic sets. Another proposed direction of research is Euclidean
Ramsey theory. Questions of the type: "Does any sufficiently large set of
points in the plane, no three on a line, contain six points forming a convex
hexagon with no other point inside?", or "Can one color points of the plane
with six colors so that no two points, unit distance apart, receive the same
color?", are questions posed many years ago by Erdos and other
pioneers of the field, and despite all the efforts are still open. The author
devises and plans to exploit novel perspectives on these problems, while
introducing certain machinery from matroid and polytope theory, and
commutative algebra.

The main theme of this proposal is to further explore the beauty of Ramsey
theory and combinatorial geometry, especially natural and intuitive questions
that can be easily described in lay terms, but difficult to solve. Fascinating
problems of Erdos-type continue to be a fertile ground for interactions of
various areas of mathematics and provide a theoretical foundation for
combinatorial optimization, VLSI design, robotics, pattern recognition,
tomography and computer graphics. Furthermore, an important aspect of this
proposal is its educational component. Working with an undergraduate
student, the investigator initiates a new discipline of Ramsey theory on
integers, where one is interested in the existence of rainbow arithmetic
structures. Questions considered are of the form: "Does every 3-coloring
of integers from 1 to 3n, with exactly n red, n blue and n green integers,
contain a rainbow 3-term arithmetic progression?" The proposed problems are
rainbow analogues of classical van der Waerden-type results in Ramsey theory,
and are well suited for undergraduate research projects. Finally, the PI and
his mentee discover and inspect a striking dependency of the degree of
regularity of certain linear equations on the axioms of set theory.